Graduate Student Support to Attend Magnetics Summer School 2019, To Be Held At Virginia Commonwealth University, Richmond, June 2-7, 2019.

This proposal will fund 10 US graduate students to attend the 2019 Magnetics Summer School at Virginia Commonwealth University, Richmond between June 2-7, 2019. The students will undertake intensive classroom training in magnetics and visit National Institute of Standards and Technology at Gaithersburg to learn about advanced magnetics concepts and characterization. The summer school will also help in the professional development of the US graduate students by allowing them to present their research at the summer school. Through this summer school, the students will have additional cultural education and networking opportunities by meeting 80 other international graduate students working the area of magnetics which will foster multidisciplinary collaborations across multiple universities in different countries. The organizers of the Summer School have particularly encouraged women and underrepresented minorities to apply

Magnetic materials and electromagnetic techniques have revolutionized our lives. New concepts in magnetics have enabled several technologies such as data recording, cancer therapy, non-volatile magnetic random access memory and brain imaging. The boundaries of these areas have been constantly pushed to overcome many existing challenges in the use of these concepts and technologies. The Magnetics Summer School will cover several of these areas of research including fundamentals of magnetism, magnetic data recording, magnetic memory, skyrmions and spin-orbit coupling. The latest results in these areas will be presented to the students by the world leading experts. Students will also present their research at the summer school in the form of poster presentations. Because of the restricted budget, the Magnetics Society has allocated funds for only 15 US students out of 80 total number of students coming from the four continents, North America, South America, Europe and Asia. Funds requested for additional 10 US student participants will enhance US strength in the field of magnetics